Collaborative Proposal: Harnessing simulation data to characterize transition layer mixing rates and mechanisms

This project will examine entrainment processes in the ocean transition layer (TL), the vertical region between the lower part of the turbulent near-surface mixed layer and the stably stratified ocean interior. The project will use a novel combination of approaches, including further analysis of existing high-resolution profile data through the upper ocean layers, high-resolution modeling of entrainment and internal wave processes in the transition layer, and machine learning techniques. These processes help determine ocean mixed layer depth and temperature and ultimately mediate air-sea exchange effects on the global ocean, yet they remain poorly understood or represented in numerical model parameterizations. Outcomes will be directly relevant to improving physical and biogeochemical ocean models. Additionally, the methods developed will be applicable to interpreting and analyzing data from a variety of geophysical flows, and the analysis scripts will be made publicly available. The work will support an early career investigator, the training of a graduate student, contributions to local outreach and educational programs, and will form the basis for a project for a graduate student in the WHOI summer program in Geophysical Fluid Dynamics.

A suite of high-resolution direct numerical simulations will be generated covering a range of expected TL mechanisms, including Kelvin-Helmholtz and Holmboe instabilities and interfacial waves. Using standard fluid dynamical analyses, including characterization of the linear instabilities and a detailed analysis of the flow energetics, this comprehensive library of flow fields will be used to determine how well a given stratified mixing event can be characterized from limited measurements. The simulations will then be used as training data for a neural network-based flow classification method, allowing for input profiles of temperature and velocity to be classified in terms of the underlying waves or instabilities. After the classification method is validated using simulation data, it will be applied to the observations, allowing for identification of the relevant mechanisms driving entrainment in the TL. Knowledge of the mixing associated with each mechanism can thus be used to describe the mixing efficiency and turbulent fluxes in the observational record.